Investigating The Use Of Flexible Wings For Uninhabited Air Vehicles

For the past two years a team of 8 investigators at the University of Florida has identified Uninhabited Air Vehicles (UAVs) have applications in both military and civilian roles. With emergence of MEMS sensors and the miniaturization of video cameras, Macs can be used for rescue and hostage situations, gathering of meteorological information, obtaining data during poisonous chemical spills and virus outbreaks, and obvious military applications without endangering investigators.
As a proof of concept, it is proposed that a prototype flexible/soft wing be built for a UAV experiments will be performed in order to evaluate and optimize the design, Strategies for future implementation of MEMS sensors and smart materials for actuation will also be investigated by determining how wing reconfiguration affects avoidance of flow separation.